Restoring the Earth

The RESTORING THE EARTH television series will be presented by the Restoring the Earth organization in association with South Carolina Educational Television and James Lipscomb Inc., a television documentary producer. RESTORING THE EARTH is about the greatest challenge facing our species today: restoring our ailing Planet to health. The story is told in five, hour-long documentary programs designed for initial release on public television and later use in classrooms. This series brings viewers an intimate look at the struggles and triumphs of men and women engaged in the science and technology of environmental restoration, amidst the diversity and glory of the natural world. RESTORING THE EARTH is a hopeful look at our environmental condition, showcasing success stories and good tidings, while enhancing public scientific understanding of the looming threats to life on Earth. The unifying theme is environmental renewal - the healing of damaged resources and the re-creation of healthy ecosystems from the wreckage of forests, rivers, prairies, wetlands, and wildlife. The series also shows how urban areas are being ecologically redesigned. Each program is self- contained and can be presented alone or as part of the series. The programs are about restoring rivers and streams (Program 1), restoring wildlife (Program 2), healing lakes and rebuilding wetlands (Program 3), restoring forests, mines, and prairies (Program 4), restoring the air, stabilizing the climate, and building ecologically sound cities (Program 5). The programs include stories such as, "River Revival," "The Prairie Makers," "Predator's Return," "The Marsh Builders," "Floodplains Aflame," "Streams Reborn," "Lake Revival," "Quiet Mines," "The Toxic Temple," "Wetlands Regained," and "Tomorrow's Cities." The RESTORING THE EARTH television series highlights humanity's capacity for repairing environmental damage to the Earth. Each episode will relate what has been done, what is being done, and what can be done to solve current environmental problems and restore the Earth.